Optimal Repair Policies for Stochastically Deteriorating Systems

This research concerns optimality issues in maintenance strategies with general degree of repair. The degree of repair is a decision variable. Optimal structure of repair policies is to be characterized as well as employment of analytical and numerical tools for efficient computation. Results from this research will increase the knowledge base for maintaining models since it will permit greater options in the selection of decision policies.